Connection to Voicenet/Internet

Valley Forge Christian College requests support from NSF to connect it's campus to the Internet. The College provides bible and religious education degrees with a student population 500 students with 19 full time and 11 part time faculty. The College intends to connect to the Internet through the Voicenet, a local Internet service provider. The campus needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.